Lattice, Trees and Group Actions

Abstract for award DMS-0401107 of Carbone

The objective of this program is to advance understanding in
algebra, group theory and representation theory with
particular emphasis on the mathematics underlying physics
and geometry. Kac-Moody Lie algebras are infinite dimensional
algebras that were first discovered by physicists. A mathematical
characterization of these algebras obtained in the 1970's allowed
for the existence of a wider class of Kac-Moody algebras, namely
hyperbolic algebras. To this day, no classical interpretation of
hyperbolic algebras is known in mathematics, nor has any physical
interpretation of them been discovered. Yet these algebras
display remarkable symmetry properties which encode deep
and intricate relationships between numbers and geometry.
These hyperbolic algebras and their groups are the objects
of our study. We have discovered the beginnings of
a theory of automorphic forms for lattices in Kac-Moody
groups over finite fields. Although Kac-Moody groups
have no obvious algebraic or arithmetic structure, our
work demonstrates substantial analogies with Lie groups
over fields of positive characteristic. Our approach, in part,
has been to adapt discrete and combinatorial methods in
order to solve problems in this infinite dimensional setting.

The objective of this program is to advance understanding in
algebra and symmetries of certain geometric objects with a
particular emphasis on the mathematics underlying physics
and geometry. "Kac-Moody Lie algebras" are infinite dimensional
spaces that are studied both by mathematicians and physicists,
having first been discovered in physics as algebras of "loops",
that is, maps from the circle into finite dimensional Lie
algebras. A mathematical characterization of these spaces,
obtained in the 1970's, allowed for the existence of a wider
class of Kac-Moody algebras, namely hyperbolic algebras.
To this day, no classical interpretation of hyperbolic
algebras is known in mathematics, nor has any physical
interpretation of them been discovered. Yet these algebras
display remarkable symmetry properties which encode deep
and intricate relationships between numbers and geometry.
These hyperbolic algebras and their symmetries are the
objects of our study. A strong theme in this research program
is to adapt discrete and combinatorial methods to solve problems
in algebra. The proposer is developing a team of researchers
in algebra, geometry, physics and combinatorics from a wide
variety of countries, and including several women, in order
to bring a wealth of diverse viewpoints to this research team.